ITR: Validating simulation to observed data with source coding methods

Project Summary
Objectives - This project aims to develop new applied mathematical technologies that add res a
widespread need in computational and simulation science: the quantitative optimization and verifi-
cation of dynamical models, incorporating both chaotic and stochastic behaviors, against observed
data. In the last couple of decades, great effort has been devoted to constructing simulation-based
models for complex phenomena, with profound advances in both analytic techniques for numerical
approximation and implementation technology on digital computers. Progress along one of the
final steps to gaining scientific insight, the verification of models against Nature, has been more
haphazard. When model and natural physical system produce temporally unpredictable variables
one cannot match any specific time-dependent behavior but only compare statistical quantities
extracted from both. Here, common practice is frequently quite crude, and is where we direct our
investigation.
Methods to be employed - We exploit recent developments in coding theory, specifically, context-
tree methods developed for universal data compression by the information theory community.
These techniques are computationally rapid, have excellent empirical performance and theoretical
properties. Our goal is not literally to compress data, of course, but to use the data structures
and models of the coding methods as high-quality statistical intermediaries between computational
models and observed data sets, providing a common mathematical "meeting ground" where fair,
and theoretically justifiable comparisons may be made.
Potential impact of the project - Large scale simulations play an increasingly important role in
the study of complex phenomena of national and global importance, from the efficiency, capability
and byproducts of complex industrial combustion and reaction systems, to environmental moni-
toring, culminating with global climate models. Predictions derived from these models inevitably
enter into the public discourse about policies, with significant legal and economic impact upon
many. The scientific community thus bears a burden to ensure that the models have been tested
against actual experiment and cross validated with intellectually sound approaches, and herein lies
the principal scientific value of the proposed investigation.
The Institute for Nonlinear Science at UCSD has an excellent international reputation and has
been able to attract high-quality post and pre-doctoral students with diverse backgrounds and
educational emphasis. This particular project offers will offer an opportunity for the students to
simultaneously learn about intriguing statistical and theoretical developments from the engineering
and applied mathematics community applied, in an novel cross-disciplinary approach, to models
of realistic, and important engineering problems, all set in the Institute's milieu and language of
"applied theoretical" physics. The skills that a successful student will take from this project com-
prise as are some mathematical fluency, physical intuition, engineering practicality and integrated
numerical and symbolic computational skills.
Finally, to the computational community, we anticipate developing and universally offering
free-standing software to perform the analyses described in the project proposal. We hope to
lower the barrier to entry for on-the-front-line computational and experimental scientists to employ
these algorithms, raising the quality of common scientific practice in dynamical model verification
without being so impractical or esoteric that few are able to successfully adopt our viewpoint.